Pressure-Temperature-Time Paths of Metamorphism, Cordillear Darwin, Southern Chile: Constraints on the Evolution of a Metamorphic Core Complex

Recent work in extensional tectonics has developed a model to explain the rapid uplift of deep-seated metamorphic rocks and their juxta position against shallow rocks that has been based primarily on examples from the southwestern United States. The objective of this research is to determine pressure-temperature- time paths of metamorphism for rocks from the Cordillera Darwin, Tierra del Fuego, Chile, that may also represent the result of extensional tectonics. This example may contain variations of lithospheric response to extension not developed in the better studied US examples. Samples of metamorphic and cover rocks will be subjected to petrologic analysis including geothermobarometry, zoned metamorphic porphyroblasts, textural analysis, fluid inclusion and geochronology determinations. Results are expected to elucidate the extensional processes in this region and provide a model for the thermo-tectonic behavior of the crust during the Andean orogeny.